SBIR Phase I: Advanced Metal Film Polishing Planarization Process Control

*** 96608253 Tang This Small Business Innovation Research Phase I project will develop an advanced process monitoring technique for the Chemical Mechanical Polishing (CMP) metal planarization process. CMP planarization was primarily developed in the semiconductor industry in response to depth of focus budget problems and multilevel metalization problems. Estimates are that the approximately $70 million CMP equipment market will grow to $300-400 million by 1997. The planarization capabilities of CMP provide significant relief to the Depth of Focus Budgets or current microlithographic tools and to process complexities of multilevel interconnections. ***